NSF FF: Planning: Building Metacognition Across Communities

This FINDERS Foundry award promotes effective self-directed learning in middle and high school algebra students through an AI-enabled platform. Algebra classes are the target of metacognition skill building because the students are developmentally prepared to engage in sustained planning, monitoring, evaluation, and adaptation of their learning strategies and, the courses introduce foundational reasoning that shape later STEM participation and academic trajectories. The co-design process with educators, students, parents, technologists and researchers will align the platform with actual classroom workflows, minimize teacher burden, and identify supports that help teachers reinforce metacognitive practices over time. The project has a broader significance for the future of STEM education and workforce preparation by building skills are essential not only for success in mathematics but also for long term participation in STEM pathways, postsecondary learning, and AI-rich workforce.

This FINDERS Foundry award advances knowledge at the intersection of cognitive science, education, and AI by developing a platform that can translate effective learning principles into sustained practice for K-12 students. The proposed AI-powered platform will function not as an answer-giving tutor, but as a metacognitive coach that prompts learners to set goals, select strategies, monitor progress, and reflect on outcomes. This project generates new insights into how AI can support the development of metacognitive skills over time, as well as how these skills can be measured through behavioral indicators captured in learner interactions. Additionally, the co-design approach contributes to design-based research methodologies by incorporating multiple stakeholder perspectives into the development process. The resulting framework will be scalable and advance the science of learning in AI-mediated environments.